REU Site: A Center for Undergraduate Research in Computer Science at IIT

This award is to support a Research Experience for Undergraduate Site. The participants will be students from the Chicago area and will be participating in research projects at the Illinois Institute of Technology. The research projects cover a spectrum of computer science activities including software fault detection, program testability, expert systems, data base research, machine reasoning, image synthesis, computer aided instruction, and message driven computing.